Mathematical Sciences: Multiplicity One Results for Automorphic Forms via L-functions

This award supports the research of Professor Dinakar Ramakrishnan in the theory of automorphic forms and representations. This work involves three problems with relations to number theory, which have L-functions as a common theme. The main focus is on a program to prove multiplicity one for the space of cusp forms on the special linear group SL(2). The second problem concerns fine versions of the strong multiplicity one theorem for the general linear group GL(n). Finally, the principal investigator seeks to complete a proof of the Tate conjecture for all quaternionic Shimura surfaces. Historically, automorphic forms arose out of non-Euclidean geometry in the middle of the nineteenth century. Both mathematicians and physicists have thus long realized that many objects of fundamental importance are non-Euclidean in their basic nature. This field is principally concerned with questions about the whole numbers, but in its use of geometry and analysis, it retains connection to its historical roots and thus to problems in areas as diverse as gauge theory in theoretical physics and coding theory in information theory.